Incorporation of NMR Techniques into the Chemistry Curriculum from Freshman to Senior Level Classes

9451451 Getman The project will purchase (1) an automated sample changer for a Varian UNITY plus 300 MHz NMR spectrometer, (2) ten Macintosh computers, and (3) software. The purpose of this equipment acquisition is to expose a large number of students, from freshman through senior levels, to NMR instrumentation and the capabilities of the instrumental technique. The proposed program will expose students in a stepwise fashion to increasingly more complex NMR concepts and techniques over four academic years. In the freshman laboratory course, students (400 annually) will be introduced to the qualitative and quantitative application of NMR spectroscopy. During the sophomore level organic laboratory course, students (approximately 175 annually) will employ proton NMR spectroscopy for routine structural analysis. The junior level advanced organic laboratory course will introduce students ( approximately 20 annually) to the use of carbon- 13, 2-dimensional and more advanced NMR techniques. Finally, the senior level inorganic laboratory course will introduce students to more advanced NMR theory and NMR spectra of quadrupolar nuclei, as well as build upon the students' previous experience with 2-dimensional NMR techniques. In short, the Varian UNlTYplus spectrometer, when connected to the Macintosh computers and equipped with an automated sample changer, will serve as the instrumental cornerstone for a program designed to systematically educate science and engineering students in the concepts and applications of NMR spectroscopy.